D-Brane Physics and Calabi-Yau Geometry

DMS-0301476
David R. Morrison, Paul Aspinwall, and M. Ronen Plesser.

String theory is one of the most challenging and interesting fields in
both mathematics and physics. Widely considered the most promising
approach to formulating a complete unified model of physics at the
most fundamental level, it has also spawned many ideas in pure
mathematics. The original idea of string theory was that all fundamental
constituents of the universe were open or closed loops of string. It
has become increasingly clear that this formulation of the theory is
incomplete in essential ways. One of the missing pieces is the phenomenon
known as "D-branes", which naively appear to be geometric objects of various
dimensions: points, strings, membranes, and so on, which coexist with the
fundamental strings of the theory.

A satisfactory mathematical framework for studying these D-branes, and an
understanding of their physical nature, are lacking. In this project,
mathematical techniques from algebra and geometry will be used to uncover
the concepts required for a precise definition of these D-branes. The
researchers will develop new mathematical tools, as needed, as well as
apply existing mathematical tools to attack this problem. The physical
nature of D-branes in non-trivial backgrounds will also be investigated
in detail, using methods from quantum field theory and insights from
supergravity. The insights gained from the study of D-branes will be
applied back to the physics of gauge theory and string theory, as well.